San Antonio Prefreshman Engineering Program

The goal of the San Antonio Pre Freshman Engineering Program (SA PREP) is to identify high ability high school and middle school students with potential and interest in engineering and sciene and to reinforce their pursuit of these fields. Project locations include the University of Texas - San Antonio, Palo Alto college and Trinity College. The academic program includes course work in logic and math applications, Introduction to Engineering and Computer Science (first year students); Algebraic Structures, Introduction to Physics (second year students); Vector Algebra and Geometry and Introduction to Technical Writing (third year students). The program runs from June 15 to August 3, 1988 and will enroll 500 students from grades 7 to 12 with a current academic average of B or better.